Responses of Nonlinear Systems Excited by Non-Gaussian Random Processes

9503533 Hu The research project aims at investigating the response statistics and structural reliability of nonlinear dynamic systems subjected to non-Gaussian excitations. Many physical phenomena can be more realistically modelled as nonlinear systems subjected to non- Gaussian excitation including earthquake loadings.